Damage and Fracture Evolution

Larsen
DMS-0807825

The investigator develops and studies models for the
evolution of elastic damage (i.e., regions of weakened elastic
properties) and fracture. Difficulties come from, among other
things, the irreversibility of these phenomena, and the fact that
existing models are essentially variational (static). The
general strategy is to first develop quasi-static models that are
consistent with these variational principles, and prove existence
and approximation results. Next, the goal is to extend these
results to the fully dynamic setting. The first step has been
essentially completed for damage and brittle fracture, and the
investigator works on developing corresponding methods for
cohesive fracture. Dynamic models and their analysis are major
open problems for all these phenomena, and are the main focus of
this project.

Material damage and fracture prediction are of fundamental
importance in the areas of materials and manufacturing, civil
infrastructure, etc., yet in the most physically realistic
setting (dynamics) there is no sound mathematical footing, making
engineering models largely ad hoc. The investigator works on
developing this mathematical support, as well as creating and
rigorously justifying algorithms for computing approximate
solutions. The project includes training mathematics Ph.D.
students through work on important interdisciplinary problems.